Numerical Techniques for Stochastic Partial Differential Equations with Non-Gaussian Noise

The goal of this project is to develop and analyze numerical methods
for parabolic stochastic partial differential equations (SPDE's)
driven by non-Gaussian noise. As a first step, work will focus on the
stochastic heat equation in one dimension, with an additive noise term
given by a Poisson random measure. The research will proceed along
two paths that will be developed in parallel: mathematical analysis
and numerical experimentation. These techniques will be used in order
to study the application of both finite difference methods (including
the explicit and fully implicit Euler methods and the Crank-Nicholson
method) and finite element methods. Once the analysis of the heat
equation is complete, it will be generalized to quasi-linear second
order SPDE's with non-Gaussian noise. After the analysis of the
one-dimensional case is complete, equations in many spatial dimensions
will be considered.

Stochastic partial differential equations (SPDE's) are used to model
many phenomena in the natural and social sciences. SPDE's are applied
in a wide variety of applications in oceanography, neurophysiology,
quantum physics, economics, and the physics of porous media (as
applied, for example, in the geology of oil extraction). The purpose
of this research is to develop and analyze techniques for the
simulation of such equations where the randomness assumes the form of
a series of discrete "shocks" (as is often the case in scientific
applications). The development of the mathematics, computer
algorithms and software for the analysis and simulation SPDE's will
have a broad impact on the fields mentioned above, since simulation and
numerical solution are an important part of the application of any
stochastic model in science and engineering. Most current models using
SPDE's make use of continuous, "Gaussian" noise. This is not
necessarily due to the suitability of such a specification, but rather
to its ease of application and implementation (and wider familiarity
among scientists and engineers). The study of SPDE's driven by noise
terms that are not Gaussian, and methods for their numerical solution
in particular, will make an important new tool available to
researchers in many disciplines.